1990 IEEE INTERNATIONAL SYMPOSIUM ON INFORMATION THEORY

The IEEE International Symposium on Information Theory is held approximately every eighteen months at sites alternating between the United States and foreign countries. The 1990 Symposium will be held in San Diego, CA on January 14.19. The areas to be covered in this symposium include communication systems, complexity theory, cryptography, data compression, data networks, detection and estimation, error control coding, multi-.user information theory, pattern recognition, Shannon theory, stochastic processes, and applications of information theory to speech and image processing, VLSI, and other fields. The proposal requests support for the air travel expenses of U.S. scientists whose papers have been selected for presentation at the symposium but who, for lack of funds, might not be able to attend. The awards will be made by a committee composed of the Co.Chairmen of the symposium. Preference in awards will go to scientists of junior rank at academic institutions. No more than one author of a given paper will receive an award. Average award size is expected to be about $300.